Atomic Physics Experiments Using Ion Storage Rings

Professor Mowat will carry out experiments on the ion- storage ring, CRYRING, at the Mann Siegbahn Institute in Stockholm, Sweden. The dynamics of electron-induced dissociative processes in HeH+ + e collisions as well as the hyperfine structure spectroscopy of highly ionized (aluminum-like) ions will be the focus of his research.